Minority Graduate Student Travel Award

This action funds a Minority Graduate Student Travel Award for visits to selected laboratories by a graduate student from Howard University. The visits will assist the student and her proposed postdoctoral mentors to work together on an application for a Minority Postdoctoral Research Fellowship.